REU Supplement: CADRE: MOSIS++: A Distributed Manufacturing Resource for Research, Education and Industrial-Integration

9905140
Sequin, Carlo
Wright, Paul
University of California, Berkeley

CADRE: MOSIS++: A Distributed Manufacturing Resource for Research, Education and Industrial-Integration

This award provides support for the establishment on the Berkeley campus of MOSIS++, an enhanced hardware testbed for rapid prototyping that will allow remote users to use the facility for fabricating and rapid prototyping of their designs using different processes. The testbed, an extension of the CyberCut project (a networked manufacturing service for rapid part design and fabrication on the Internet) will allow the rapid manufacture and physical prototyping of hybrid systems typical of consumer electronics products. Educational materials will be developed and made available to other universities who wish to use MOSIS++ capabilities to teach product design and manufacturing of small electromechanical products in computer science and engineering courses.